High-Accuracy Multidimensional Positivity-Preserving Finite-Volume Advection Scheme for Atmospheric Modelling

9221808 Leonard Numerical models of atmospheric processes are valuable tools for producing operational forecasts and to assist researchers in understanding fundamental interactions between various physical processes. An important component of any numerical model is the accurate mathematical representation of atmospheric processes. As computer power has increased and the spatial resolution of atmospheric forecast, climate and research models has improved, so the need for more accurate numerical advection schemes has increased in significance. This is because higher spatial resolution allows representation of sharper gradients and changes in gradients. The Principal Investigator will pursue the development of a highly accurate, computationally efficient scheme for advection-dominated flows typical of atmospheric processes. Specific objectives include extending to three dimensions the Principal Investigator's previous work on a third order, one-dimensional advection scheme. He also will investigate the development of a multidimensional universal limiter. Successful completion of this research should result in improved representations in numerical models of a variety of atmospheric phenomena. ***